Hands On Physics: A New Conception of Physics

Hands On Physics represents a major reconsideration of introductory physics which takes full advantage of the powerful insights learned in that time about how students learn and the new opportunities technologies offer. The material developed will targets students headed for technological careers at the high school and two-year college level. The project is collaboration between a small central staff and practicing teachers and faculty, who are developing, testing, and revising the material in actual classrooms.